Real Submanifolds and Holomorphic Mappings in Geometric Function Theory

Abstract: The long-term goal of this project is to study holomorphic
mappings and real submanifolds arising in complex analysis and
holomorphic dynamical systems. A large part of the PI's proposed
research has its roots in Birkhoff's fixed point theorem, the KAM
(Kolmogorov-Arnold-Moser) theory, and the Siegel-Bruno-Yoccoz
theory. On the other hand, new research obtained by the method of
complex analysis will give new insights into the classical
area-preserving maps and reversible maps, and reversible or
Hamiltonian systems. The PI's proposed research involves several
problems in connection with real analytic surfaces in
two-dimensional complex space, formally linearizable reversible or
area-preserving real analytic maps, and singular Levi-flat
hypersurfaces in the complex projective space.

The differential equations concerning the motion of N mass points,
a model of the solar system,in the three-dimensional space attracting
each other according to the Newton's law form a Hamiltonian system.
The reversibility of a dynamical system could just be the time-symmetry
that is important in practical matters. The periodic orbits of certain
area-preserving mappings correspond to the periodic motion in the
Hamiltonian system of the restricted three-body problem, and such study
of the existence of such periodic orbits goes back at least to work of
Poincar\'e and Birkhoff on the celestial mechanics about a century ago.
The PI's work aims to understand the existence of periodic orbits in such
Hamiltonian or time-symmetric systems, both over the real numbers and
over the complex numbers.The PI is active in undergraduate teaching, and
has also organized a graduate student seminar dealing with his research area.